Data-Driven Models and Constraints for Artificial Intelligence for Periodic Fluid Flows

Many engineering systems involve fluid flows that evolve in a nearly repeating manner, including the wakes behind aerodynamic vehicles and buildings, and rotating machinery in engines and energy conversion systems. The data associated with these flows can be huge: three-dimensional, evolving in time, and with small-scale features that add many details to be saved. The size of the data and the dynamics they describe can make it hard to build simple models for the fluid behavior that would allow engineers to design or control the fluid to improve the technology’s behavior (for example, to make it quieter or more efficient). Increasingly, engineers use methods from linear algebra and artificial intelligence to extract dominant patterns from complex flow data. However, widely used approaches often produce representations that are difficult to interpret, limiting their usefulness. This project seeks to address this challenge by developing analysis tools and constraints for artificial intelligence that capture underlying structure of the original data, including its (nearly) repeating nature and its symmetries and asymmetries. By enabling representations that capture how flow behavior evolves over a cycle, the work will support clearer physical interpretation and more reliable data-based models. The work also supports education of professional users of cyclical fluid data. AIAA conference workshops will train industry and academic practitioners on the concepts and implementations of the developed tools. Graduate training will provide catered skill development through coursework that leverages ideas built in this program, and through research experiences in fluid mechanics and data-driven modeling.

The project quantifies the dynamical and statistical structure of periodic and near-periodic fluid flows, uses this understanding to explain representation challenges with current data-driven decomposition methods and artificial intelligence tools, and suggests constraints for next-generation methods to enable better representations of fluid dynamics data. The researchers will characterize multiple turbulent datasets using time-delay representations and phase-based descriptions, together with statistical analyses that distinguish global from phase-dependent statistical measures. These results will be used to identify fundamental structure in fluid dynamics data and the limitations of commonly used decomposition techniques, which rely on low-order global second-order correlations and may fail to capture phase-localized structure and higher-order statistics. Building on these insights, the project will develop improved representations that align more closely with the intrinsic organization of the data. These will include phase-conditioned decompositions, dynamically evolving basis representations, extensions of modern low-rank and tensor-based methods informed by the underlying flow dynamics and higher-order statistics, and constraints for artificial intelligence to yield interpretable results. The resulting framework will provide a principled basis for interpreting and improving data-driven and artificial intelligence models of fluid flows, with implications for simulation, reduced-order modeling, and data-driven design.